SBIR Phase I: Point-Of-Use Nano-Mosaic Filter Technology for Lithium

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is in the development of an efficient, rapid, and cost-effective point-of use technology to recover lithium from brine resources. Current brine operations are capital intensive and incur significant lead time (2 years) with low recovery (30%) for producing high-grade lithium. The proposed technology targets two-fold reduction in operation cost, high lithium recovery (90%), and reducing extraction time from 2 years to less than 24 hours. Contributing to the world-wide Total Addressable Market (TAM) of ~$992 billion, this technology will impact the global lithium market, growing at an estimated compound annual growth rate (CAGR) of 1.9% for energy storage, electronic bikes, electrification of tools, and other battery-intense applications.

This small Business Innovation Research (SBIR) Phase 1 project proposes to develop a point-of-use nanomembrane filter for lithium extraction from non-traditional water resources. The proposed filter utilizes a robust, porous, and surface charged tailored sorbent of a novel coordination polymer framework prepared from an abundant natural polyphenol. The sorbents possess molecular sieving ability, tailorable pore size up to the pore dimension <2 nm, and functional coordination sites for high binding affinity for lithium ions. The novelty of the innovation over current technologies (e.g., solar evaporation and ion-exchange techniques) is nano-based filter technology with selective affinity for lithium, enabling rapid and efficient extraction and recovery of lithium. The research objective is to demonstrate the proof-of-concept for recovery within 24 hours as either lithium chloride or lithium carbonate with targeted recovery efficiency and conversion >90% in a subsequent step. The project includes: (1) Fabricating the membrane from the molecular sieves, (2) evaluating the lithium sieving performance, recovery, and conversion, and (3) fabricating a prototype filter unit. These developments will directly address current limitations in extraction time and efficiency, cost, recovery efficiency of lithium, and environmental impact of solar evaporation, ion-exchange and solvent extraction, and osmosis membrane systems.